Technological Literacy: Assessment and Measurement of Learning Gains

This effort is conducting a workshop to create a broad-based characterization & measurement of the technological literacy of American undergraduates and the potential effectiveness of technological literacy courses. The workshop is utilizing and refining existing assessment tools to: 1) measure increases in technological literacy for undergraduates; 2) develop new shared assessment tools & related standard learning outcomes; 3) investigate how increased technological literacy impacts actions & attitudes; and 4) identify factors that promote the institutionalization of technological literacy courses. The combined results will help create a means to characterize and measure the technological literacy of American undergraduates and gauge the potential effectiveness of technological literacy courses.